SBIR Phase II: Advanced Micro-Pixelized Scintillator for Structural Biology

This Small Business Innovation Research Phase II project is aimed at developing a novel digital x-ray detector for macromolecular crystallography. This detector is based on a new generation micro-pixelized scintillator optically coupled to a large area digital readout array. The micro-pixelized scintillator will provide a unique combination of very high sensitivity, spatial resolution, and signal to noise ratios resulting in excellent point spread function (PSF), thus improving the quality of the measured Bragg peak data.

When integrated with a large area digital optical detector it will allow a wide dynamic range and substantially enhanced throughput at relatively low costs. In addition to the structural biology application, the proposed detector would find widespread use in instrumentation wherever high-resolution x-ray imaging is used.